Topics related to the dynamics of an ideal fluid.

The Euler equations, a set of partial differential equations
that describe the motion of an inviscid fluid, are an
exceptionally challenging system. Friedlander studies issues
related to these equations that involve important mathematical
problems and at the same time reflect basic properties of fluid
behaviour. Friedlander and Pavlovic examine an infinite system of
nonlinearly coupled ordinary differential equations that provide a
simpler model of the Euler equations. They use a variety of tools
to examine the "closeness" of the model, for which they prove the
existence of finite time singularities, to the Euler equations.
In a separate line of research Friedlander and her collaborators
continue a project that examines the stability and instability of
fluid configurations. They study the unstable spectrum of the
Euler equation with the goal of a complete description of the
structure of this spectrum over the energy norm for generic two-
and three-dimensional flows. This spectrum detects not only
instability in the linear sense but also is closely related to
natural physical questions about the transition from stability to
instability for the full nonlinear system. The investigator and
her collaborators use a considerable range of mathematical
techniques to carry out this research, including asymptotic
methods, spectral theory, operator semi-group theory, dynamical
systems, and harmonic analysis.

The issue of stability or instability of a fluid flow is one
of the central problems in fluid dynamics: stable flows are robust
under inevitable disturbances in the environment, while unstable
flows may break up, sometimes violently. Even though the topic
has been the subject for intense study over more than a century
because of its connection with many branches of science, such as
engineering, physics, oceanography, and meteorology, many
questions remain open. Friedlander uses mathematical techniques
to answer some of these questions and her work shows that in some
appropriate sense almost all fluid flows are unstable, although
there are a number of different types of such instability. A
student is involved in the project, and the investigator continues
various mentoring activities to encourage women to enter careers
in mathematics.